Site-Specific DNA Cleavage at oriT of the F Plasmid

The F plasmid exemplifies a class of conjugative plasmids that carry antibiotic resistances, colonization factors, and virulence factors. The transfer origin, oriT, plays a central role in DNA transfer: it is the site at which the transferred strand is nicked to initiate DNA transfer. This research will examine in detail the mechanisms for oriT function in initiation and termination of strand transfer. Regions of the oriT locus will be correlated with their role in nicking, transfer, or termination of transfer. The four phenotypes to be employed are overall transfer proficiency, in vivo nicking (electrophoretic assay of plasmid species), copy-number competition (competition for limiting substrate by oriT subregions cloned on small multicopy plasmids), and product fidelity (production of aberrantly-terminated oriT plasmids after transfer with mutant oriT or tra genes). These mutants will be generated by oligonucleotide site-directed mutagenesis or deletion, and will include traM, traI, and tray. We will determine whether host protein (IHF, DNA gyrase) participate in oriT function. Proteins will be purfied for DNA binding studies and for establishing and invivo nicking system. DNA-protein contracts and protein-protein contacts found invivo will be compared to similar data for relaxation complex that we have isolated from F bacteria also carrying small oriT plasmids. The structural and biochemical data will be related to the genetic data to specify the biological mechanisms for oriT function.